Harmonic Analysis and Linear Elliptic Equations

ABSTRACT
This proposal is concerned with research on singular integrals, the theory of
weights, with applications to linear elliptic partial differential
equations of second and of higher order. There are three main areas of
current focus. First, we study the elliptic measure associated to
a second order elliptic operator - both divergence and nondivergence
form. Second, we are studying the boundary values of solutions to
certain higher order elliptic operators in non-smooth domains. The third
part of this proposal concerns the maximal functions and singular
integrals associated to certain product domains - such operators involve
nonisotropic dilations and results require a study of the geometry of
families of rectangles arising from this dilation structure.

In the middle of this century, revolutionary ideas in analysis were
being forged on two fronts: the theory of singular integrals in
harmonic analysis (the Calderon-Zygmund school of analysis) and the
theory of elliptic equations (Di Giorgi, J. Nash). Each of these
subjects has provided fascinating applications - the first in such
areas as applied harmonic analysis/wavelets/Fourier analysis, and the
second in the theory of nonlinear partial differential equations, of
tremendous value in applications. But at the beginning of these studies, and
for a period of twenty or so years, the development of each of these
subjects proceeded independently, and with little interaction. However,
since the early 1980's, the connections between these areas have
been increasingly exploited and understood, to the great benefit of
the fields of harmonic analysis and partial differential equations.
This proposer's research is in this field of harmonic analysis, with
an emphasis on its connection to and inspiration from partial
differential equations.